Development of a Full-Field Vorticity Measurement Technique for 3-D Unsteady Flows

This research will demonstrate the capability of a stereoscopic, two- camera system for tracking laser-illuminated particles to produce unsteady, three-dimensional vorticity maps in complex flows. The technique depends on utilization of a finite thickness two- dimensional sheet of laser illumination. If successful, this non- intrusive, three-dimensional diagnostic technique would be widely applicable in experimentally determining complex velocity and vorticity fields. Among other uses, this information is crucial in evaluating current numerical computation schemes.